Investigations in Cell Biology

9815069
NEWLIN

The Science Museum of Minnesota will develop "Investigations in Cell Biology," an integrated program that introduces cell, microbiology, and molecular biology to museum audiences through open-access, wet-lab, micro-experiment benches; training and support for school teachers; classes for adults and teens; and a long-term program for local high school youth. The project includes the development, testing, and installation of four micro-experiment benches that introduce visitors to the objectives, tools, and techniques of cell biology experimentation. These benches,"Inside the Cell," "Testing for DNA," "DNA Profile," and "Microbe Control," will be part of "Cell Lab," a 1,500 square-foot open experiment area within the science museum's new core exhibition, "The Human Body," opening December 1999.